Directional Recrystallization Processing

A fundamental study of directional recrystallization processing will be performed with the goal of understanding how key microstructural parameters, principally the interparticle spacing and grain size, interact with the processing conditions (rate of hot zone movement and temperature) to control the microstructure. The study covers both primary recrystallization and grain growth. Initial work is on model systems of copper (single crystals and polycrystals) containing fine hard particles introduced by internal oxidation. For recrystallization, a key question is whether a particle-containing alloy should show accelerated recrystallization or retarded recrystallization (compared to unalloyed copper) in order to be amenable to directional recrystallization processing into a single crystal or columnar-grained structure. For grain growth, determining the role of particle coarsening is key to understanding how elongated grains or single crystals can be produced.

The work will involve a close coupling of experiments with computational microstructural simulation. With this fundamental understanding of directional recrystallization, modeling can then be used to guide directional recrystallization of commercially-useful aerospace materials. Thus, the project will also apply the fundamental understanding and modeling expertise developed to directional recrystallization of a nickel-based superalloy. A predictive capability for materials processing is sought regarding what volume fraction, size or spacing of particles should a material include to make it amenable to directional recrystallization. In addition, the state-of-the-art of microstructural simulation will have been advanced.